San Antonio Urban Systemic Initiative in Science, Mathematics and Technology

WPCL 2 B P Z Courier 10cpi #| x g x 6 X @ 87 X @ HP LaserJet III HPLASIII.PRS x @ , \ , ' QX @ #| x 2 Z B # X HP LaserJet III (lpt3:) HPLASIII.PRS x @ , \ , ' QX @ Courier 10cpi Courier 10cpi (Bold) ? x x x , g x 6 X @ 87 X @ ? x x x , x ` B7 X SQV& t 1 ( < t &: u CF & ? t & ?.t 4 6 ^Y P & t . u r> 9 G z XtR P - > $ u> > tC : : ; u G * = ! 2 J 9353076 Rodriguez The San Antonio Independent School District self study/planning grant will focus on five areas: (1) vision, (2) professional development (3) resources (4) learning opportunities, and (5) policy reforms. The self assessment process will address key educational issues, establish consensus and provide direction for systemic in mathematics and science education. The study will begin by involving community task forces in town meetings, surveys and questionnaires. Visions from San Antonio's 15 school districts will be developed and synthesized into a common plan that identifies of barriers and outlines implementation strategies. SAISD, key city stakeholders and current school partners will build upon successful education strategies initiated as a part of the City of San Antonio's Target '90 Goals strategic planning effort. The self assessment will yield a report that will summarize baseline data and outline an action plan that addresses systemic reform of mathematics and science education. ***